CAREER: Performance-Based Design of Earthquake Resisting Structural Systems

9733959
Bracci

The proposed 1997 NEHRP (National Earthquake Hazard Reduction Program) Provisions for seismic regulations of new buildings and other structures (BSSSC-1997), show marked improvement in trying to define, in the design process, the performance levels of structures during earthquakes. Performance levels are expressed in terms of allowable damage to structural and non-structural components, with the intention of providing definite margins of safety. Three performance levels are considered, including Immediate Occupancy, Life Safety, and Collapse Prevention. Although the guidelines represent a significant advance in the practice of seismic engineering, calibration of the analysis procedures and acceptance criteria for actual building performance is clearly needed. The objectives of this CAREER Development Program are to: (a) Evaluate and compare the design of various lateral force resisting structural systems according to the proposed 1997 NEHRP Recommend Provisions for Seismic Regulations for New Buildings & Other Structures; (b) Evaluate and compare their performance-based response during various levels of seismic excitation using nonlinear time history dynamic analyses; and (c) enhance an existing graduate course in Civil Engineering at Texas A&M and develop a short-course for students, researchers, and practicing engineers from the United States and Mexico which will emphasize performance- based design of seismic force resisting structural systems. The impact of the project will be recognized by providing probabilities of occurrence for various performance levels of several types of structural systems due to earthquakes of varying intensities. Therefore, given performance based- design objectives for a structural systems during earthquakes of varying intensities, the lateral load resisting mechanism can be selected for optimal performance. In addition, given an existing structural system designed according to previous building codes, the ex pected performance level under various earthquake intensities can be identified and the need for seismic retrofit can be determined.